Some problems in number theory

The goal of this project is to study some classic problems in
combinatorial and analytic number theory. More precisely, Yu will study
(1) bounds for finite sets of integers satisfying some binary additive
properties, and (2) rank 0 quadratic twists of elliptic curves over the
rationals. The objects in study (1) are the generalized Sidon sets and
additive 2-basis of integers. A new idea is introduced which captures the
concentration of the sumset and the difference set. Along with the classic
methods of discrete Fourier analysis, this new idea results in an
improvement for currently the best upper bounds for the cardinalities of
generalized Sidon sets. This new approach will also be employed to improve
the lower bound for the 2-basis of integers. In study (2), Yu will show
that, for any elliptic curve which posses a 2-isogeny over the rationals,
a positive proportion of its quadratic twists have rank 0; and, for a pair
of elliptic curves over the rationals, there are infinitely many
squarefree integers D such that the quadratic twists of the two curves by
the same D simultaneously have rank 0. To achieve these, techniques such
as the first descent, sieve methods and estimation of character sums will
be applied. Besides, Yu will try to use the similar methods to prove
boundedness of the average rank of the quadratic twists of every elliptic
curve over the rationals.

The problem of bounding a (generalized) Sidon set has attracted a lot of
attentions. While an upper bound for a generalized Sidon set has natural
implication in the study of Fourier series from Sidon's work back in
1930's, it is also closely related to some other problems in harmonic
analysis and continuous Ramsey theory. In the first part of this project,
Yu studies the upper bounds for generalized Sidon sets, and use the new idea
involved to study some related problems. In the other part of the project,
Yu is devoted to studying some arithmetic of elliptic curves. Yu will
partially solve a longstanding problem related to the rank of elliptic
curves, and will also study some related problems.